Magnetic Moment Creation at Interfaces

This research project, supported jointly by the Analytical and Surface Chemistry Program of the Chemistry Division and the Solid State Chemistry and Polymers Program of the Division of Materials Research, explores the magnetic properties of epitaxial monolayers and bilayers. Spin resolved photoelectron spectroscopy is used to probe the creation of magnetism in non-magnetic metallic overlayers deposited on the Fe(001) surface with elemental specificity. X-ray photoelectron diffraction is used to determine overlayer geometric structure in these systems. In combination with theoretical calculations, this information is used to comprehensively examine the creation of magnetic interfaces using normally non-magnetic materials. The novel properties of these materials are of fundamental interest, and are relevant to the understanding of magnetic thin film recording materials. %%% With the support of the Analytical and Surface Chemistry Program and the Solid State Chemistry and Polymers Program, Professor Klebanoff of Lehigh University is investigating the magnetic properties of monolayer and bilayer films of non-magnetic metals deposited on magnetic iron substrates. Magnetic information from spin dependent electron spectroscopy coupled with geometrical information and theoretical calculation, provide a detailed understanding of these fundamentally important solid state systems. A better understanding of the magnetic properties of thin film materials is essential for the continued health and growth of the magnetic recording materials industry.